Extracting and Using Discourse Structure to Resolve Anaphoric Dependencies: Combining Logico-Semantics and Statistical Approaches

This project extends the depth of analysis of natural language
understanding systems for open-domain newspaper texts by capturing
important dependencies between clauses. Two co-dependent tasks are the
focus of the study: (1) the determination of discourse structure and
(2) the identification of referential links between anaphoric
expressions and their antecedents.

This project utilizes the formal theory of discourse structure known
as Segmented Discourse Representation Theory (SDRT). SDRT claims
that tasks (1) and (2) strongly interact: discourse structure can rule
out many possible anaphoric dependencies, while resolved anaphoric
links can inform the determination of discourse relations and
segments. This project tests this hypothesis in a limited setting for
a restricted set of discourse relations.

Baldridge's Probabilistic Discourse Structure Parser (PDiSP) is the
principal tool for addressing task (1), while a Maximum Entropy based
Anaphor Resolver (AR) handles task (2). The project involves
annotation for discourse structure and anaphoric dependencies to help
guide and train the tools. Features relevant to both tools, like
predicate argument structure, tense and aspect, are drawn from
wide-coverage sentential parsers. Lexical information are drawn from
Wordnet ''sanitized'' by OntoClean. The first phase of the project
investigates the interdependency of tasks (1) and (2) by using
anaphora-based features in the PDiSP and then features based on
discourse structure accessibility in the AR. The results are then
compared to base line models and to running AR and PDiSP without those
features. Both software and annotated materials developed in the
project will be made available to the community.